Quasar Extended Emission-Line Regions: Evidence for Massive Quasar-Driven Superwinds?

The awardees will carry out a research program on extended emission line regions (EELRs) around quasars, which are thought to be the result of a superwind emanating from the active region. Superwinds may be fundamentally important in limiting the buildup of galaxies via a feedback loop. The primary goals of this research are to: 1) characterize physical conditions in the brighter parts of several EELRs; (2) measure large-scale velocity fields in the EELR gas; (3) measure velocities in emission-line gas close to the QSO; and (4) quantify the relative levels of star formation and nuclear activity in matched samples of QSOs with and without luminous EELRs.

The broader impacts include training of research students, undergrad exercises, and public lectures. Also, a dedicated server will improve public access to a photoionization code.